MRI: Acquisition of 4G LTE and WiMAX Wireless System to Facilitate Multidisciplinary Research Efforts and Enhance Undergraduate Research Training

This project, acquiring 4G long term evolution (LTE) and WiMAX wireless system, enables research projects aiming to develop a real-time wireless video surveillance network to evaluate delay tolerant-base content sharing system, to utilize localization and tracking using sensor data, and to enhance health monitoring. The instrument expands the overlapping areas of surveillance networks, content sharing systems, wireless sensor networks, robotics, virtual reality, and health monitoring, specifically fostering research collaboration in these areas. The overall goals for this work include
- Training undergraduate and Master’s students in wireless networks research,
- Developing hand-on laboratory-based course modules, and
- Engaging in outreach efforts.

Already, the number of devices exceeds the number of wired Internet connected devices, and the gap continuous growing. This acquisition allows researchers to utilize the strength of wireless networks. The wireless video surveillance network is a sensor network where each node is equipped with camera framing a video scene of the region of interest. High bandwidth of 3G LTE and WiMax can support real-time observation of people and vehicles in a busy environment. On the other hand, the increase in multimedia content makes providing good-quality services in wireless networks a challenging problem. 4G LTE and WiMAX systems have a high bandwidth that can provide reliable service. The instrumentation allows the researchers to configure the 4G LTE and WiMAX wireless system, measure the link performances, (such as RSSOI (receive signal strength indicator), CINR (carry to interference plus noise ratio); and bandwidth on different locations. Additionally, different applications will also be developed.

The instrument supports new undergraduate laboratory classroom modules and STEM recruiting and outreach efforts. The instrumentation can be used in courses such as High Speed Network to provide a quantitative exercise in network configuration and testing. The institution also strives to increase representation of underrepresented minorities within the student population trough mechanisms such as AIM (Academically Interested Minds). The students gain experience in various aspects of multimedia communication and wireless and,in harmony with the REU site program and college-level undergraduate research incentive program, undergraduates will be integrated into respective research programs. Training will also be offered to a broader body of students at the institution and beyond and underrepresented students will be sought. While disseminating the novel principles and methods of multimedia communication developed, an undergraduate research program on the topic will also be established.